Hadron Collider Physics 2004; University of Michigan; June 14-18, 2004

This proposal requests funding for partial support of the travel and registration expenses of U.S. graduate students at the 15th Conference on Hadron Collider Physics 2004 (HCP2004) to be held on the campus of Michigan State University from June 14-18, 2004. The conference will cover the experimental and theoretical aspects of Hadron Collider Physics, but will also include talks from electron-proton, electron-positron and heavy ion physics. There will also be presentations of the physics anticipated at the Large Hadron Collider (LHC) being constructed at CERN, near Geneva, Switzerland. Newspapers and local television stations are being informed of the event and will encourage and inform the public at large.